The structure of transformation group C*-algebras

Abstract
Phillips

The Principal Investigator, N. Christopher Phillips, proposes to follow up on his recent joint work with Qing Lin on crossed products by minimal diffeomorphisms, and on his recent results on crossed products by free minimal actions of finitely generated free abelian groups on the Cantor set. These results, and particularly the methods of proof, suggest that much stronger theorems should hold. Specifically, consider a minimal and essentially free action of a countable amenable group on a compact metric space with finite covering dimension. The ultimate goal is to prove that the transformation group C*-algebra of such an action is a direct limit, with no dimension growth, of recursive subhomogeneous C*-algebras. In particular, it should have stable rank one, real rank zero or one, and cancellation of projections. While the conjecture as stated is still far from being proved, the Principal Investigator hopes to make substantial progress by analyzing various aspects of it in isolation from each other; the idea is to put the pieces together afterwards. The Principal Investigator also proposes to investigate, where appropriate, the smooth counterparts of such algebras, to investigate the isomorphism classification of the resulting C*-algebras, and to investigate connections with orbit equivalence problems in topological dynamics.

A dynamical system consists of a space and a collection of transformations of this space satisfying suitable mathematical conditions. As an example, consider the set of possible states of a physical system and its time evolution: the transformations specify for a given time and initial state what state the system will be in after that much time has passed. Another example would be a physical space and its underlying symmetries, such as the Lorentz group acting on space-time in special relativity. If the relation between the space and the transformations is simple, the dynamical system can be studied directly. When this relation is complicated, it is often useful to introduce additional objects; one natural such object is the transformation group C*-algebra. An additional reason for studying this algebra is that sometimes objects of physical interest are more closely related to it than to the original dynamical system; an example is the Schroedinger operator for an electron moving in a quasicrystal. The purpose of this project is to understand the transformation group C*-algebras in cases in which the dynamical system is complicated, but in which the C*-algebra seems likely to be amenable to analysis. (This incluse the quasicrystal case.) It also seeks to better understand the relation between the dynamical system and the C*-algebra, and to begin the analysis, in appropriate cases, of objects that are related to the C*-algebra but preserve more information about the original dynamics.